Utilization of Composite Materials for Civil Engineering Applications

9528182 Sorby This is a research planning project in which the investigator will study the connections of poltruded polymer Composite shapes to each other and to conventional materials. ***